Phylogenetic Relationships and Evolutionary History of the Freshwater, Apical Pore Field-Bearing Cymbelloid and Gomphonemoid Diatoms

Diatoms are planktonic algae whose siliceous skeletons are commonly found in the marine and freshwater fossil record. Principal Investigator Eugene Stoermer proposes to continue his research into the evolutionary origins of freshwater diatoms, and the ancestor-descendant relationships among living species of the cymbelloid and gomphonemod diatoms. Light and scanning electron microscopy will be used to study ultrastructure, cytology and valve morphology. Cladistic methods will be used to reconstruct evolutionary relationships of living groups, which will then be compared with the sequence of their appearances in the fossil record. The proposed work has implications beyond the discipline of diatom systematics. Diatoms are widely used as environmental indicators in lakes, and the proposed work will improve their classification and identification criteria. A better understanding of the tempo and mode of diatom evolution will emerge, and the project will serve as a model for other researchers attempting to do integrated research on modern and fossil species.